Workshop on Current Issues on Nonequilibrium Statistical Mechanics and Materials, Bethlehem, PA, October 10-11, 1997

9725612 Rickman This grant will help support a workshop on current issues in nonequilibrium statistical mechanics and materials to be held at Lehigh University on October 10-11, 1997. The workshop has been organized in recognition of the contributions of Professor James D. Gunton to this field. %%% This grant will help support a workshop on current issues in nonequilibrium statistical mechanics and materials to be held at Lehigh University on October 10-11, 1997. The workshop has been organized in recognition of the contributions of Professor James D. Gunton to this field. ***